An Annual Review of Engineering Senior Design Projects to
Aid Persons with Disabilities

9813338
Enderle
This grant will provide funds to edit and publish an annual review of the student biomedical engineering design projects supported by the Research to Aid Persons with Disabilities program at NSF. There are presently over 25 institutions participating in this program. The eighth edition is being completed and this grant will support the publication of an additional five volumes over the next five years. The work not only provides a catalog of rehabilitation device projects for use by the rehabilitation community but it is also being used as resource material in engineering design courses. An electronic edition of the publication is available in URL <http://nsf-pad.bme.uconn.edu>.
***